ENGINEERING RESEARCH EQUIPMENT: Computer Workstation

ABSTRACT CTS-9411825 Kristen A. Fichthorn A state-of-the-art high-speed RISC computer workstation is acquired. This is to be used for research in computational statistical mechanics, morphological evolution in metal thin-film growth, dynamics of molecules on surfaces, and the influence of stress on metals.